Diffusion of Macromolecular Complexes

Diffusion of Macromolecular Complexes: This award recommendation is made under the U.S.-Industrialized Countries Program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia, and New Zealand. Exchange awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the prospective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their research careers. This research project will utilize Pulse Field Gradient NMR (PFGNMR) diffusion measurements to investigate the formation and structure of macromolecular complexes of isotactic and syndiotactic poly(methyl methacrylate) (PMMA) and lignin preparations. An analysis of the structure and molecular weight distributions of PMMA and lignin preparations will precede characterization of their diffusion coefficients as a function of concentration, molecular weight and degree of association. The development of a model for the diffusion of the associated macromolecules from diffusion results will entail analysis to obtain hydrodynamic volume and shape information as a function of degree of association. The project is under the direction of Dr. Theodore M. Garver, Research Assistant, Department of Forest Products, University of Minnesota at St. Paul, MN 55455, U.S.A., and Professor Paul Callaghan, Department of Physics and Biophysics, Massey University, Palmerston North, New Zealand. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 for the U.S. home institution.